SBIR Phase I: Damage Models for Metallic and Composite Structures

This Small Business Innovation Research Phase I project will develop Damage Models applicable to composite and metallic structures. These models will be implemented in a finite element based software package. The types of damage considered include single and multiple akin cracks, delaminationa and penetration holes. Particular emphasis is placed on developing damage models applicable to stitched dry preform/resin film infusion (S/RFI) composites. If the research is successful, widespread application could result among industries which must design and maintain damage tolerant structures made of metallic and composite materials such as aerospace companies and engine manufacturers.